NATO EAST EUROPE: Hydrothermal Precipitation and Microwave Sintering of Hydroxyapatite

9355460 Agrawal The activity between the IMRL and the Slovak Technical University in Bratislava will strengthen the cooperative research which the two institutions have been carrying out for the past several years. This activity has benefited both research units in developing new methods and new materials in the area of material/ceramic research, and the participating researchers have gained new knowledge in their respective areas of expertise. The experience of the guest partner in the area of the solid state processes occurring at high temperatures in various environments would of great help to understand the sintering behavior of hydroxyapatite. ***